Building Success: An Industrial and Engineering Technology Scholarship Project

Madisonville Community College is awarding12 two-year scholarships valued at $3125 per annum. The scholarships are enabling academically talented, but financially disadvantaged students to pursue full-time study in Industrial and Engineering Technology. The Industrial and Engineering technology faculty in collaboration with the Student Support Services staff is developing a comprehensive Individual Education Plan for student that serves as a blueprint for academic success. In addition to such student support services as a mathematics tutoring center, a learning center where peer tutoring is available, and both academic and career counseling, the students attend a retention workshop each semester that they hold a scholarship. During the last semester of study, attendance at a job placement workshop is encouraged.